Mathematical Sciences: Studies in Theoretical Statistics

The focus of this project is to examine situations where finite- or infinite-dimensional parameters are to be estimated from i.i.d variables from a common distribution and to apply a generalized theory of adaptive and efficient estimation. Specific applications include inference for software reliability and field testing, response functions under shape restrictions, gene mapping procedures and the construction of similarity indices in molecular biology. This project will take some very general theoretical results and refine these for specialized complexities seen in particular circumstances.